Gearing for Success: Scholar-Leaders in Mathematics and Computing

The project increases the number of women and minorities who graduate with baccalaureate degrees from Columbia College in the fields of mathematics and computer information systems by awarding scholarships for six students the first year and 15 for each of the next three years. The project objectives are 1) attract and recruit academically talented but financially needy women and minority students to major in mathematics and computer information systems (CIS); 2) increase retention rates to 80% by providing academic support, mentoring, and peer leadership opportunities for project participants; and 3) prepare participants for successful entrance into the workplace or graduate school upon completion of their degrees.

The project features special support programs including a lunchtime seminar series that focuses on topics to gear Scholar-Leaders for success in future careers in math or CIS; mentoring relationships with faculty and industry representatives; and technological communication about the project. Participants have program enhancement opportunities offered through the campus Leadership Institute, department programs (including the Math Lab, The Mathematics and Computing Society, Math Day, and the Mathematics and Technology Camp), additional internships, professional meetings, and campus academic support centers.